Genetic Regulation of Cell Identity in Neurogenesis

One of the most formidable problems in neural development is to understand how the regulation of the fate of the small number of cells of a developing embryo translates in the adult nervous system to a large number and the wide diversity of cell types. The well documented genetics and molecular biology of the fruit fly, Drosophila melanogaster, make the fruit fly an excellent model system for the study of the role of specific genes and their regulation of expression in the adult animal. The runt gene has been shown to have diverse roles in the development of the fruit fly and recently has been shown to effect specific identifiable neurons developing from specific subsets of neuroblasts. Hybrids of the runt gene will be used determine the role of the native gene in determining the fate of specific neuroblast cells in early development. The structure of nuclear regulatory protein generated by the runt gene and its hybrids will be used to determine the structurally significant part of the protein from a functional perspective. Information from these studies will be used to evaluate the extent of preservation of this function in higher species and the generalization of gene regulatory processes through the animal kingdom.